AI-powered multi-scale modeling of microbiome-host interactions

Prediction of organismal characteristics based on genetic signatures of an individual
organism is a fundamental problem in biology. Recent advancements in the field indicate that
microbiome, a community of microorganisms found in all environments on earth from human
bodies to soils, plays an essential role in determining the function of ecosystems. Microbiome
generates a variety of metabolites that serve as messengers for the microbiome to communicate
with its surroundings. It remains unclear how these messengers communicate. This research
intends to decipher the molecular language of microbiome-environment interactions, thereby
resolving a major enigma in life sciences. Understanding the fundamental rules governing
microbiome-environment interactions will facilitate the solution of pressing problems in
agriculture, environment, energy, and human health/well-being. By modulating the function of the
microbiome in plants, for instance, agriculture could become more productive while requiring less
pesticides and fertilizers. Utilizing the microbiome's photosynthetic energy is a promising
alternative clean energy solution. Maintaining gut microbiome stability may improve human
immunity. This multidisciplinary research involving biology, chemistry, and computer
science will create opportunities for underrepresented students in life sciences to pursue
careers in computer science and bioinformatics, fields in which racial and ethnic minorities are
woefully underrepresented.

Metabolite-protein interactions (MPIs) play a major mechanistic role in maintaining microbiome
communities and mediating microbiome-host interactions. Exploration of the global landscape of
MPIs and the host gene expressions regulated by the MPI would fill critical knowledge gaps in
causal environment-genotype-phenotype associations. However, our understanding of MPIs and
their regulatory pathways is limited due to the transient and low-affinity nature of MPIs. Existing
experimental techniques for determining MPIs and their functional roles are time-consuming,
biased to certain molecules, or applicable on a relatively small scale. The rapid growth of multiple
omics data provides us with new opportunities to predict MPIs across entire microbiomes and host
genomes. However, due to noisiness, biasness, incompleteness, and heterogeneity of omics
data sets, their potential has not been fully appreciated for developing accurate, robust, and
interpretable predictive models for MPIs and their functions. The project will develop an
innovative AI-powered multi-scale modeling framework to predict biological functions of
microbiome metabolites by integrating diverse data from chemical genomics, structural genomics,
and functional genomics. Specifically, this research will develop a novel end-to-end meta-learning
method following a sequence-structure-function paradigm to predict genome-wide microbiome
metabolite-host protein interactions, and innovative domain adaption methods to translate cell line
screens to host systemic responses to microbiome metabolites by disentangling intrinsic biological
signals from both biological and technical confounders. An immediate outcome will be a bespoke
platform to infer novel biological relationships from noisy, biased, and incomplete data, which
will have broad applications in addressing many fundamental biological problems. Another far-reaching
benefit will be the discovery of novel genetic, molecular, and cellular mechanisms of
biological processes. Completing this project will provide a powerful computational framework to
correlate molecular interactions to physiological processes, and establish causal environment microbiome-genotype-phenotype associations. The results of the project can be found at
https://github.com/XieResearchGroup/.